Beowulf Computer for Computational Chemistry

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Princeton University will acquire a Beowulf computer for computational chemistry. This equipment will enhance research in a number of areas including a) quantum simulation of materials; b) quantum liquids; c) control of molecular processes; d) computational surface chemistry; e) statistical mechanics applied to the generational and structural characterization of hard-particle systems; and f) biomedical imaging.

A cluster of fast, modern computer workstations is vital to serving the computing needs of active research departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, provides state-of-the-art graphics and visualization facilities, and supports research in state-of-the-art applications of parallel processing. These studies will have a significant impact in a wide number of areas, including biochemistry and materials science.